Workshop Support: DIALM for Mobility

PI: Errol L. Lloyd
Proposal Number: 0079454
Institution: University of Delaware
Title: Workshop Support: DIALM for Mobility

This award supports the 4th International Workshop on Discrete Algorithms and Methods for Mobile Computing and Communications (DIAL M for Mobility). This workshop is devoted for discrete algorithms and methods in the context of mobile and wireless computing and communications. The workshop is intended to serve as a forum for open discussions and lively debate, and to foster cooperation among practitioners and theoreticians.